Coordination of Multiple Autonomous Agents With Humans

9355018 Bajcsy The proposed program is focused on research and education relating to the fundamental scientific issues underlying the coordination of multiple robotic agents for manipulating and transporting objects with limited assistance from human agents. We argue that the narrow specialization of the PhD does not always serve the needs of education and engineering today. We propose an integrated approach to research which fosters multi-faculty-student interaction. In this approach several faculty and students from different backgrounds, but with common goals, collaboratively pursue a research agenda which requires the collective expertise of the group. The interdisciplinary GRASP Laboratory with faculty and students from four different engineering departments is uniquely qualified to train PhD students in the focus area and provide them with the breadth and depth that is required in today's high technology society. We request five traineeships for the laboratory. ***